SBIR Phase I: Integrated Optoelectronic Circuits

This Small Business Innovation Research (SBIR) Phase I project proposes the development of integrated optoelectronic circuits through a novel integration process. These devices will be hybrid electronic/optical elements embedded in an integrated platform comparable in size to existing electronic integrated circuits, and will permit the monolithic integration of microelectronic and photonic elements. This project will fabricate a test 'chip' to demonstrate controllable phase modulation on the sub-micron scale while contemplating the integration of multiple devices onto a single platform to confirm dense integration densities.

This approach to integrated optoelectronic circuits to act as an enabling technology for tomorrow's dense optical networks, significantly improve processing speed and computational precision for multiple applications including intra-computer and inter-computer communications, image processing, and increasingly more dense processing platforms. This potential suggests that integrated optoelectronic circuits will have applications in the telecomm industry, the medical imaging device market, and the computing equipment market including, but not limited to, Digital Signal Processors and CPUs for digital communications networks.